Fundamental Studies in Non-linear Chromatography (Chemistry)

This project is in the general area of analytical and surface chemistry and in the subfield of liquid chromatography. Professor Guiochon is an experienced investigator who is highly regarded for his contributions in this area. Liquid chromatography is a highly sensitive analytical technique that is frequently used to separate and quantify complex mixtures. Professor Guiochon and his co-workers will investigate ways to dramatically improve the separation of concentrated solutions of various materials, including species of biochemical and biotechnological importance. These fundamental studies will result in a contribution to basic science and will also suggest strategies for large scale separations of materials that are important to chemical and health science related industries.